Plan for Calculators in the Calculus Curriculum

Oregon State University will work with Hewlett Packard to develop and implement a calculus curriculum which makes essential use of the HP28S- symbolic/graphical calculator. The objectives are to identify: calculus topics pedagogically suited for use on symbolic/graphical calculators; roles of symbolic/graphical calculators in calculus; production of curriculum/calculator materials to be tested during the academic year. Charles Patton, a developer of the HP28, who is writing a calculus book based on the HP28 will provide both technical advice regrading the calculator as well as allow adaptation of his calculus text materials, which are appropriate for the pilot classes at OSU. In addition, the principal investigator and exemplary high school teachers from the Title II HP28 calculator project will present a series of workshops at the Northwest Conference on utilizing the HP-28 in mathematics classes. Oregon State and HP will share costs of this project.